Genetic Analysis of the Beta1-Subunit of Voltage Dependent Calcium Channels

Calcium channels control the movement of calcium ions into neuronal cells. The amount of calcium entering a given cell is critical in determining the function of that particular cell, and how it responds to input from other cells. There are a large number of different calcium channels that have specific functions and are present in different parts of the brain. Furthermore, each calcium channel is a complex of several different proteins, all of which are important in determining the function of any particular channel. New strategies are required to dissect the role of specific calcium channels in brain function. This project is designed to investigate the role of one of these proteins in neuronal cell function, using a novel approach. A mouse model that lacks the protein of interest is being developed. This animal model will be used to determine the effect of the absence of one particular protein on channel function, both in the whole animal and in isolated cells. These studies will provide valuable insight into the role that this particular gene plays on the function of some neuronal calcium channels. These studies also will provide information regarding the feasibility of using this approach for the study of other calcium channel proteins in the future.